7th international conference on differential equations and dynamical systems

This award supports travel for junior researchers and plenary speakers participating in the "Seventh International Conference on Differential Equations and Dynamical Systems," held 15-18 December 2010 at the University of South Florida. The meeting focuses on recent developments in ordinary differential equations, nonlinear evolution equations, dynamical systems, and applications. The conference features plenary talks from leaders in these fields, as well as contributed presentations by graduate students, postdoctoral researchers, and junior faculty.

The conference will foster collaborations between junior and senior researchers, providing recent PhD recipients with opportunities to present their work and to make contacts with researchers from other institutions. The proceedings of the conference will be published as a supplemental volume of the Journal of Nonlinear Systems and Applications. The conference encourages and supports participation by graduate students, postdocs, junior faculty, women, and minorities.

Conference web site: http://www.math.usf.edu/7thde/